Classical and Quantum Mechanical Investigations of Stochastic Perturbations of Coulomb Orbit

***
9805197
Burgdorfer
The projects under study, the dynamical evolution of Rydberg atoms excited by ultrashort electric fields, the non-radiative recombination of Rydberg atoms in a low temperature magnetized plasma and electron scattering in semiconductors heterostructures have a common theme and goal. The need to understand the complex dynamics of simple systems subject to strong perturbations and the connections and correspondence between classical and quantum dynamics.
***